Presidential Young Investigators Award

This research is associated with a Presidential Young Investigator Award, and is concerned with obtaining tools which are useful in the analysis and control of systems containing significant uncertainty. These uncertainties are characterized deterministically, rather than stochastically. The systems treated can be linear or nonlinear and analyzed by either continuous time or discrete time methods. The major application of the research is in the analysis and control of aerospace and mechanical systems. Specific directions in this research will consider the following situations, (1) the uncertainties satisfy less restrictive structural conditions than presently assumed, (2) the complete state of the system is not available for feedback, (3) there are delays in state measurement or control application, (4) there are uncertainties in the dynamic order of the system, and (5) the system is infinite dimensional in character.